Mathematical Sciences: Ap, RHp and Other Weight Conditions

This award supports postdoctoral work on mathematical questions in the theory of harmonic analysis of weighted spaces. The theory of Ap and RHp weight has been developed in great detail, but the dependence of certain estimates on the norm of such weights has not been adequately studied. This work will focus on this dependence for two specific questions, one relating to operator norms, and the other relating to the Jones factorization theorem. Work will also be done analyzing weight conditions which are weaker than RHp and also less well understood. In particular, efforts will be made to find analogs for WRHp weights of results involving RHp weights. Further studies of Muckenhoupt's class Cp weight will also be taken up as time permits. The theory of weighted spaces was developed to understand complex integral transforms induced by differential operators. Understanding how weighted integrals compare gives information on how the integrals preserve metrics or norms. This data, in turn, illustrates the extent to which existence of solutions of the differential equations can be guaranteed.